Connection to Pennsylvania Research and Economic PartnershipNetwork

9305053 Moyer The State System of Higher Education (SSHE) of Pennsylvania on behalf of its member institutions, proposes to connect the 14 System Universities (at 22 sites) to the Pennsylvania Research and Economic Partnership Network (PREPnet). Since it is not economically feasible to individually connect each site to PREPnet, the sites must first be connected as a single entity to gateway to PREPnet. PREPnet will in turn provide access to NSFNET, the Internet, and other national networks. The educational institutions that will participate include: Bloomsburg University, California University of Pennsylvania, Cheyney Univ., Clarion Univ., East Stroudsburg Univ. Edinboro Univ., Indiana Univ. of Pennsylvania, Kutztown Univ., Loch Haven Univ., Mansfield Univ., Millersville Univ., Shippensburg Univ., Slippery Rock Univ., and West Chester Univ.. The network will provide a consistent statewide architecture for NSFNET access for a broad variety of entities engaged in education and research. This cooperative network will provide gateways to regional, national, and international networks and will be consistent with their standards. It will further the institutions' work in enhancing the state's economic development through a well-educated workforce, accessible training opportunities, and research and development partnerships. Another goal of the network is to facilitate collaborative projects and sharing of resources between institutions, including those outside the state. The universities need greater functionality and network speed to be able to access supercomputers, libraries, and make file transfers along with being able to implement a more reliable mail system. Students and faculty research will benefit from the link. This is also a unique opportunity for the schools to explore innovative educational resources. ***